First Annual Meeting of the Institute of Multifluid Science and Technology (IMuST) in Santa Barbara, CA, February 28 - March 1, 1998

Abstract CTS-9809166 T. G. Theofaneous, UC, Santa Barbara Partial travel support is provided for the participants of the First Annual Meeting of the Institute of Multifluid Science and Technology (IMuST) in Santa Barbara, February 28 - March 1, 1998. IMuST promotes critical evaluation of current research, interdisciplinary activities, and synergism between fundamental research and industrial needs. This annual meeting will have a focus on dispersed systems. The meeting has three parts, including emerging areas of research, technical challenges and education, and an open forum. The NSF, U.S. Department of Energy, U.S. Nuclear Regulatory Commission, and National Aeronautics and Space Administration co-sponsor this meeting. Approximately 40 participants will receive partial support. The Proceedings and other materials prepared by the IMuST technical advisory committees will be made available to the scientific community and industry. ***